Eighth International Conference on Arabidopsis Research - University of Wisconsin, Madison, June 25-29, 1997

9723809 Amasino This award supports the participation of students and postdoctoral fellows in the "Eighth International Arabidopsis Conference", Madison, Wisconsin, June 25-29, 1997.